Algebraic and Geometric Topology

9704637 Milgram The research in this project is led by three principal investigators from the Mathematics Department at Stanford University: R.L. Cohen, S.P Kerckhoff, and R.J. Milgram. Cohen and Milgram both have research projects that involve studying the algebraic topology of spaces ("moduli spaces") that arise as the set of solutions to equations coming from Geometry and Theoretical Physics. These include the Yang-Mills equations defining instantons on four dimensional manifolds, and the Cauchy-Riemann equations, which define holomorphic structures on maps from surfaces to a variety of important target manifolds. In addition, Cohen plans to use techniques from Algebraic Geometry and Topology to study a holomorphic version of the K-theory of an algebraic variety. These lead to invariants of holomorphic bundles in a systematic way. Milgram plans to continue to study the emerging connections between the structure of finite groups and homotopy theory. He will also study the topology of certain special types of function spaces with applications to both homotopy theory and other areas of mathematics. S.P. Kerckhoff studies low dimensional topology and geometry. In this project he plans to continue his work on hyperbolic geometric structures in dimension 3. This includes studying structures with singularities along links and along graphs. He will use both combinatorial and analytic methods. Recent interactions between mathematics and physics have brought new ideas and problems into mathematics related in part to the physicists' desire better to understand quantum field theory. Among the mathematical results of this interaction have been extensive new information about the geometry of 3- and 4-dimensional spaces, including counterexamples to basic conjectures and new structure results. The major focus of this project is to apply much more advanced results from deep, well-developed areas of mathematics, such as algebraic topology and homotopy theory , to these new ideas and problems, as well as to related questions. ***